Improving the Locality of Reference in Heap-Allocation Intensive Programs

With the widespread use of object-oriented programming languages, including C++ and Java, programs that do a significant amount of heap storage allocation are becoming increasingly widespread and important. This project investigates aggressive implementation policies that can improve reference locality in allocation-intensive programs, both in languages with and without garbage collection. Specifically, the approach followed here uses profile-based optimization and predicts the objects that are likely to be highly referenced at the time they are allocated. It also investigates object splitting, in which the representation of objects is split into multiple parts, and the more frequently referenced parts are co-located. There are three primary contributions arising from this research. First, it investigates the empirical properties of programs in languages that use manual (e.g., C++) and automatic (e.g., Java) storage reclamation. It shows that C programs exhibit exploitable behavior, and it expands these results to other languages. Second, this project develops, evaluates and compares alternative algorithms for identifying and exploiting predictable reference behavior. Finally, it shows that prototype implementations of the algorithms being investigated can significantly increase performance in substantial programs.